Fierce Forces

The North Alabama Science Center (NASC) will develop an interactive virtual learning experience in atmospheric science that combines a 3-D large-screen format presentation with interactive program activities. The project will be designed to run on the statewide network of Immersive Theaters located at three science centers across Alabama: NASC in Huntsville; Gulf Coast Exploreum in Mobile; and the Alabama Wildlife Federation Field Center in Montgomery. The project concept integrates scientific methods of inquiry into a virtual hands-on learning program, providing a mechanism for social-based informal learning about atmospheric science. To sustain engagement beyond the science center venue, ancillary materials will be developed, including a unique, interactive website. A project advisory committee consisting of members of the informal learning community, industry, academia, pedagogical practitioners and researchers, informed by front-end, formative and summative evaluation, will guide project development. The evaluation will provide findings to inform the future development of immersive theater programs, and other exhibit formats that may combine data visualization with data explorations. The project will expand its audience in Alabama through development of a Spanish-language version and its website developed in concert with the immersive theater program. The North Alabama Science Center's project will allow programs created for its immersive theater system to be used in other content visualization systems at other science centers. As a long-term impact this will enable new venues nationwide utilizing other content visualization systems to use the proposed project at their respective sites.